CRCNS 2013 PI Meeting at Massachusetts Institute of Technology

The PIs and Co-PIs of grants supported through the NSF-NIH-BMBF Collaborative Research in Computational Neuroscience (CRCNS) program meet annually. This ninth meeting of CRCNS investigators brings together a broad spectrum of computational neuroscience researchers supported by the program, and includes poster presentations, talks, plenary lectures, and discussions. The meeting is scheduled for June 9-11, 2013 and is hosted by the Massachusetts Institute of Technology.